Mathematical Sciences: Smooth Dynamical Systems and Dimension Theory

9403724 Weiss The research covers several topics in smooth dynamical systems including hyperbolic sets in dynamical systems, relationships with thermodynamics, stochastic behavior of flows and related spectral theory. The research has potential applications to other areas of dynamical systems, chaos and areas of mathematical physics involving ergodicity and entropy. ***